SBIR Phase I: Development of a High Manufacturing Rate and Low Cost Membrane and Electrode Assembly for PEM Fuel Cells

This Phase I SBIR program will investigate and develop a new process for depositing catalysts on fuel cell membrane and electrode assemblies (MEAs). The proposed process for producing reliable MEAs is conducive to high volume manufacturing using fabrication tools familiar to industry. In addition to high rate production capability, the proposed process optimizes the electrode/catalyst structure allowing us to reduce the catalyst loading that further reduces the MEA cost. This program will demonstrate the process in operating fuel cell stacks and evaluate the economics of employing the process on a larger scale.
The proton exchange membrane fuel cell is a promising power source for vehicles with residential, stationary, and portable power applications.